Reasons for Carnegie Mellon to Join PSERC

This is a proposal for Carnegie Mellon University (CMU) to join Power Systems engineering research center (PSerc) PSerc is a consortium of universities and industries, formed to collaboratively tackle critical power systems problems. The inclusion of CMU in PSerc will benefit both institutions: CMU has resources that will enhance PSerc's problem solving capabilities, and PSerc will make it possible for CMU's researchers to work on problems that would otherwise be inaccessible to them.